Collaborative Research: Massive Surveys for Pulsars and Radio Transients Using the Arecibo L-band Feed Array

AST 0507797
Jay Holberg
University of Arizona
The Local Degenerate Star Population: Calibrating a Vast New Domain
ABSTRACT
A program to comprehensively study the local white dwarf population will be undertaken
to address fundamental questions concerning the Galactic origin (thin disk, thick disk or halo) of
both individual white dwarfs as well as the spectroscopic subpopulations of these stars. This
study will also provide important details on the thermal and chemical evolution of white dwarfs
and link the local white dwarf population with larger more distant samples such as the white dwarf
population in the Sloan Digital Sky Survey. The population for this study is the 2000 to 2500 white
dwarfs listed in the Villanova Catalog of Spectroscopically Identified White Dwarf. These goals are
achieved through the use of newly available photometric, spectroscopic and proper motion data
to augment existing data on this population of predominantly local white dwarfs. A fundamental
aspect of this proposal is the maintenance and upgrading of the existing Villanova Catalog of
Spectroscopically Identified White Dwarfs and the (Arizona) White Dwarf Database, in which all these data
sets will reside. Finally, a modest observing program will be conducted to deepen and expand
the existing spectroscopic and photometric data for known white dwarfs that will fill key gaps as well
as validate the classifications for all stars in the catalog and database.
The database contents (both observed and parameters derived through this work) will
be made publicly available via the internet and used by astronomers across several disciplines
(Galactic structure, formation, compact object physics, etc.). Multiple undergraduate students will
be involved with aspects of the work at both Arizona and Florida Tech. They will participate
in the design of the database, its population, and analysis and will have the opportunity to experience
scientific research with large data sets.